III-CXT-Small: Algorithmic strategies for genotype-phenotype correlations

In the wake of new sequencing and genotyping technologies,
whole genome studies are now being undertaken to understand
the genetic basis of phenotypes. Many of the principles underlying
the measurement of genotype-phenotype relationships,
as well as computing related population genetic parameters,
are relatively well understood. However, the upcoming technologies
dramatically change the scale and scope of these studies,
which already encompass tens of thousands of individuals
over a genome-wide region. The analysis of this data requires novel
algorithmic and statistical techniques.

This project focuses
on a subset of the problems that could arise in a typical
whole-genome based association study. These include:

(a) Phasing of genotypes into haplotypes using overlapping sequence data,
and the application of this algorithm to phasing individual human sequences;
the availability of high coverage long sequence data will make this approach
the method of choice for phasing in the near future.

(b) Fast filtering for pairs of loci that interactively influence a
phenotype and its application to multiple-locus testing of common
disease phenotypes. The proposed work reduces the computational
bottleneck in multiple locus testing.

(c) Detection of regions under balancing selection. Available tests
are focused on detection of regions under positive selection.
The proposed research looks for evidence of balancing selection in
the genome, with specific attention on genes associated with bipolar disorder.

(d) Reconstruction of regulatory pathways using associations between genetic
variation and gene-expression.

All software from this research is freely available as source-code,
or as web-tools for academic, research and non-commercial purposes
in accordance with University policy.

Further information on the project may be found at the project web site:
http://bix.ucsd.edu/algen